A Lagrangian Study of the Faroe Bank Channel Overflow

This study will use a novel drifter design to follow water overflowing
from the Norwegian Sea, into the main North Atlantic, through the Faroe
Bank Channel. By using a tag-line, the drifter will remain a small
distance above the bottom until the overflow water descends to a
predetermined depth. A dozen drifters will be launched in the Faroe
Bank Channel and tracked acoustically. The path data and depth data
will provide information about the overflow water's speed through the
Faroe Bank Channel, the way in which the dense overflow water descends
into the North Atlantic after it crosses the sill in the channel, and
the way it circulates in the deep Iceland Basin. Temperature and
pressure data recorded by the float will provide information about the
rate of mixing between the overflow water and the surrounding water.